2nd Engineering Foundation Conference on: "Chemical Reaction Engineering", March 8-13, 1987, Santa Barbara, CA

Reaction engineering is an interactive discipline encompassing the scientific principles of chemistry, transport phenomena, applied mathematics, control, economics, etc. Traditionally, its applications were confined to the petroleum and chemical industry but are currently spreading to biotechnology, specialty chemicals and production of new materials. Two major changes that occurred during the present decade demand further evolution of reaction engineering: 1. a slowdown in plant construction for large scale commodity chemicals and petrochemicals 2. a variety of novel processes are being developed in specialty chemicals, biotechnology and new materials (ceramics, metals, polymers, optical fibers, semiconductors, etc.). Introduction of reacton engineering principles and expansion of the discipline into these latter fields is needed. This represents an unprecedented opportunity for significant impact of reaction engineering on development of numerous new technologies. How to prepare for and what should be done to meet these challenges of the future, are the underlying themes of this conference. The Second Engineering Foundation Conference on Chemical Reaction Engineering (EFCRE2) will gather a group of experts from academia and industry to assess the new trends and developments in reaction engineering and to critically evaluate the most promising future research directions. The proposed conference will concentrate on two areas: a. Reaction engineering of new materials and batch processing. b. The current state-of-the-art and needed new approaches in direct reactor design (with minimal scale-up effort) for large scale processes via implementation of modern computer technology. Participation will be limited to 100 people, it will be held in a secluded location, with everyone required to eat their meals together. This format should encourage better exchange of ideas than at large less structured meetings. The PI is emerging as a leader in reaction engineering and is well qualified to organize the conference. A $20,800 grant out of FY 1987 funds is recommended to cover expenses of keynote speakers from the universities in the U.S. and to provide funds for six graduate students to attend the meeting.